From fluids to fields: PDEs across scales in hydrodynamics, kinetic theory, and quantum field theory

Fluids, gases, and quantum fields are fundamental objects of study in mathematical models that underpin weather prediction, aerodynamics, plasma physics, materials science, and many other engineering applications. Many of these physical systems are too complex to analyze at the level of individual particles. A more practical avenue towards understanding is to study the mathematical equations used to describe and predict large-scale behavior, rather than the behavior of individual particles. This project will develop a mathematical understanding of these equations, aiming to identify the predictive capabilities and limitations of the underlying models. The project also includes research opportunities for graduate students.

This project will study fluid dynamics, kinetic theory, and quantum field theory. The fluid dynamics portion will focus on the incompressible Navier-Stokes equations and address the existence or non-existence of stationary solutions, as well as the regularity of incompressible vector fields in the context of anomalous diffusion of passive scalar variance. The kinetic theory component will investigate the existence and properties of kinetic shock waves and the existence of non-trivial stationary solutions. The quantum field theory component will study the existence and regularity of solutions. Research techniques across the three areas include convex integration techniques, scale-by-scale analytical tools, asymptotic expansions, and various methods from harmonic analysis and partial differential equations.